Engineering Creativity Award: Quantitative Flow Visualization and Imaging

The research involves a method of quantitative flow visualization combining optics and computer-aided image and data analysis for investigation of flow phenomena. In the research a modern method of measuring flow velocity and its related properties, called "flow imaging" is used. Flow imaging is an emerging technique for accurate measurements of the flow field. The research is to create a system that can provide quantitative measurements of the whole flow field by integrating and utilizing the recent advances in optics, video, photography, and computer data processing. Problems with both hardware and software necessitates an initial study of flows about which much is known so that accuracy of the technique can be verified. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.